Young Investigator Symposium at the 1996 Workshop on Steriod Hormones and Brain Function at Breckenridge, CO: March 30 - April 3, 1996

9600047 Roselli Steroid hormones are integral modulators of neural communication and development. These simple molecules, acting as hormones, have the potential to influence all neural functions from initiation of neural development to the activity of individual synapses in adults. Recent advances in knowledge about non-genomic actions of steroid hormones, the involvement of non-neuronal elements in reproductive function and the role of steroid hormones on neural organization, have had striking effects on neuroendocrine physiology, neuronal cell biology, reproductive physiology and non-reproductive behaviors such as learning and memory, aging, aggression, feeding and emotion. This action will provide support for a Young Investigator Symposium to be held at the 1996 Workshop on Steroid Hormones and Brain Function in Breckenridge, CO on March 30-April 3, 1996. This workshop brings together scientists using different approaches to address important and timely issues concerning steroid hormone and growth factor involvement in brain function. Molecular biologists, neuroanatomists, neurophysiologists and behavioral scientists will discuss issues such as neurotrophic and neuroprotective effects of estrogen, the neurobiology of androgenic anabolic steroids, functions of G-protein linked steroid hormone receptors, and steroids and reproductive behaviors. These are fundamentally important questions in a field that is rapidly changing and advancing. The inclusion of the Young Investigator Symposium will provide a mechanism to foster young scientists and facilitate collaborative efforts that may significant enhance our understanding of basic neurobiological mechanisms.